SBIR Phase I: Design and Fabrication of Novel Microfluidic Devices for STEM Education

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project will be development of a novel platform for the design and high-volume fabrication of microfluidic devices for educational and research purposes. Currently used fabrication methods are not conducive to the large-scale production of robust, high quality, open-channel microfluidic devices that are cost-effective for widespread use outside of specialty applications. The proposed platform will contribute to bridging the gap between the promised and actual impact of lab-on- a-chip technologies in fields like biology and chemistry. Devices fabricated using the new platform will be the centerpiece of laboratory kits that utilize microfluidics to apply scientific and engineering concepts at the high school and college levels. The kits will contribute to educational efforts that address the nation’s demand for STEM professionals, projected to grow at twice the rate of all occupations in the next 10 years, while training students in a field expected to reach a $60 billion market value by 2029.

This Small Business Innovation Research (SBIR) Phase I project seeks to eliminate the main technical hurdles that prevent the large scale production of open-channel microfluidic devices. Current lithographic, additive and micromilling fabrication technologies require a combination of expertise, equipment and production time that make them ill-suited for the purpose of assembling devices that are inexpensive and robust enough for consumer use, for example, in educational settings. The proposed platform will leverage new and existing high-volume fabrication technologies to manufacture film-based devices with channels and chambers measured in the tens and hundreds of micrometers, featuring strong bonding between layers to allow for high pressure flow, and at a projected cost of <0.15 USD per device. Research objectives include the development of gravity-based and hand powered pump setups appropriate for educational and low resource settings. The advancements in device fabrication processes achieved in this project are expected to have a positive impact beyond the field of education, facilitating the commercialization of microfluidic technologies in fields like analytical chemistry, biomanufacture and point-of-care biosensing.